Mathematical Sciences: Cross-Disciplinary Workshops in Statistics

Many of the really exciting advances in sciences are now being made in highly interdisciplinary environments; and many of the important aspects revolve around statistical issues. This research project will bring together statisticians and scientists from academic, governmental, laboratory and industrial setting to delineate crucial problems in several scientific areas and to identify and formulate the needed statistical research..